Problems in surface theory/ membranes/hypersurface singularities

Abstract

Award: DMS-0071729
Principal Investigator: Brian Smyth

This proposal is predominantly concerned with qualitative aspects
of the theory of surfaces as well as its application to the
construction of a complete theory of equilibria for the general
elastic membrane. The work on surface theory is uncovering
previously unsuspected qualitative behavior of the principal
foliations near an isolated singularity (umbilic) in a smooth
surface in space, which strikingly distinguishes them from
general foliations. This behavior explains the Caratheodory
conjecture and, in many cases, proves the conjecture as a mere
numerical consequence. The work on elastic membranes establishes
the equilibrium equation of the most general stretched elastic
membrane in equilibrium under an applied force field --- a
far-reaching generalization of the classical Young-Laplace
equation which was only valid for isotropic membranes. The
context for this work is the unit circle bundle of the membrane
surface equipped with the canonical lift (Sasaki metric) of the
induced metric on the membrane surface; the key idea is the
construction of a vector-valued 1-form on this bundle which
completely encodes the responding forces of surface tension set
up within the membrane.

Surfaces are mathematical entities which are fundamental to the
understanding of the structure of matter in physics, chemistry
and biology. The surface at the interface of two different types
of matter is frequently modeled by an elastic membrane. An
observer of an elastic membrane in equilibrium can see the shape
of the membrane, understand the forces that are being applied and
even measure the average surface tension but has no idea of the
responding forces of surface tension set up within the
membrane. This work reveals the precise relationship between
these observables and the internal surface tension forces for the
general membrane. It follows that the response is never entirely
predictable from the observables (membrane geometry, applied
force, average surface tension) but that a certain core behavior
is determined --- except for a very remarkable family of
membranes (whose exceptional nature is defined solely by their
geometry and not their physics) which live by a different set of
rules. By example, it is shown that the common ad hoc assumptions
of isotropy are seriously flawed. The authors' work on the
principal foliations of surfaces has already provided a key
result which has been applied by Rozoy to settle a long-standing
problem on the symmetry of a liquid ball in general relativity,
as well as relating streamlines of a plane fluid flow to surface
theory.